Water Purification Process Utilizing Electrochemically Generated Hydroxyl Free Radicals

9360457 Weres The objective of this project is to evaluate an electrochemical process for destroying organic compounds dissolved in water utilizing electrodes which generate hydroxyl free radicals. The fundamental chemistry resembles processes powered by ionizing radiation. Hydroxyl attacks most organic compounds in a nonspecific manner. Olefinic and aromatic compounds, including highly chlorinated compounds and phenols, react particularly well. Most contaminated groundwaters have sufficient electrical conductivity to carry the small currents needed to remove the low TOC levels typical of these waters. The process appears particularly attractive in application to brackish groundwaters typical of coastal areas, and to industrial process waters. This is a Phase I award based on a proposal submitted in response to NSF 93-18, Small Business Innovation Research (SBIR) Program Solicitation. During Phase I, destruction of several organic solvents dissolved in water will be demonstrated, and two cell configurations will be tested and compared. The results of Phase I will be extrapolated and used to design a large water treatment system. The proposes process is expected to find many commercial applications where organic compounds need to be removed from water, including contaminated groundwater, and process water in oil refineries. Projected operating costs are expected to compare favorably with the nearest competing process.